SBIR Phase I: Multilayered Ceramic Impedance Sensors for Detection of Nitrogen Oxides

This Small Business Innovation Research Phase I project will develop multilayered ceramic impedance sensors for NOx monitoring in chemical and environmental applications. Competitive sensors have several performance gaps that the proposed sensors may help overcome, namely - high costs, poor response times, poor stability, poor selectivity, poor reversibility, poor sensitivity, and fragility. During Phase I, Nanomaterials Research Corporation will establish the proof-of-concept that commercially desired, nano-engineered impedance sensors can be prepared and that the sensors offer significant performance
advantages. Phase II will optimize and produce packaged prototypes, while Phase III will commercialize the technology. This effort may also help launch a whole family of sensors for low-cost chemical composition monitoring.